Dissertation Research: Light Interception and Growth in Four Pioneer Tree Species with Contrasting Canopy Architecture

The research will focus on the significance of canopy structure for light interception and growth in seedlings of four fast- growing neotropical tree species with contrasting architectural patterns. The four species, Cecropia obtusifolia, Heliocarpus appendiculatus, Piper auritum, and Trema micrantha, present a spectrum of canopy architectures, from few large leaves born on a single shoot to many small leaves born in a branched crown. Light interception of seedlings growing in the field will be estimated with computer simulations which combine measurements of leaf display with hemispherical photographs of the canopy light environment. The light interception capacity will be correlated with growth over an 18 month period. This analysis will be complemented by a study of seedling growth in a controlled environment, in which relative growth rate is decomposed into three factors, the ambient light level, the amount of light intercepted, and the efficiency of light utilization. Finally, individuals of each species will be grown in spatially heterogeneous environments to evaluate the plasticity of architectural and morphological components of leaf display. This research will provide a quantitative analysis of the functional significance of canopy architecture in relation to light interception and carbon gain.